Collaborative Research: Engineering Efficient and Equitable Food Distribution Under Uncertainty

This grant provides funding for the development of decision models to support the efficient and equitable management and distribution of supply in the resource constrained environment of food distribution. While most Humanitarian Supply Chain (HSC) related research has focused on the distribution and stocking of relief supplies or location of supply centers, in sharp contrast, issues surrounding donations management (i.e., the solicitation, coordination, distribution and management of donated goods, money and services that form inputs into the HSC) and its impact on the downstream relief recipient have been unexplored, particularly for food distribution. This research focuses on the development of predictive models to (1) characterize donor behavior, (2) quantify supply availability and (3) determine the equitable allocation of constrained supply. The models will account for the complexities associated with donations management such as uncertainty in both supply and demand, with demand often exceeding supply; the criticality of delivering goods to relief recipients at the right time; the appearance of sudden demand surges due to natural and manmade disasters; and perishability of donated items.

This research offers substantial benefits to society in terms of improved supply allocation and donations management for non-profit relief agencies. The ability to characterize donor behavior and incorporate the objective of equitably distributing supply enables relief agencies to make informed inventory and supply allocation decisions and strategically target donation solicitations. It also has the potential to enable humanitarian relief organizations to satisfy greater demand by more efficiently allocating available resources, thus impacting human life. The research addresses the critical intersection of humanitarian relief and engineering by linking donations management and food distribution to supply chain management (inventory policy) and forges a relationship necessary to address the significant issues in humanitarian relief in terms of equitable satisfaction of need, cost and human outcomes faced worldwide today.